Origin of Microtubule Systems by Symbiosis: Axoneme- spirochete Comparisons

This research is directed toward testing the hypothesis of the origin of eukaryotic cell organelles by microbial symbioses. Intracellular microtubule systems are purported to derive from symbiotic associations of fermenting and motile bacteria. In particlular, the idea that centrioles and axonemes as well as cilia, eukaryotic "flagella", the mitotic spindle, and other eukaryotic microtubular systems are derived from spirochete motility symbioses. This proposal suggests development of two lines of evidence in approaching this problem: cloning the gene for a tubulin-like protein which this laboratory recently has detected in Spirochaeta bajacaliforniensis, and seeking proteins in spirochetes similar to axonemal proteins using immunological techniques, To facilitate these studies methods will be developed to culture large, free-living spirochetes. Some two decades ago Dr. Margulis proposed a major hypothesis for the origin of eukaryotic cells. She suggested that cells evolved by a sequence of steps in which close symbiotic relationships were formed between microorganisms. In effect, one type of microorganism took up residence inside another (became an "endosymbiont") and ultimately became a cellular "organelle". Her ideas concerning the origin of plastids, and mitochondria as microbial endosymbionts have been substantiated by molecular studies in a number of laboratories. Her idea that major cellular organelles responsible for motility arose from symbiotic relationships between microbes like present day spirochetes has, as yet, not been tested. The work proposed here would enable Dr. Margulis to begin a systematic comparison between spirochete proteins and proteins comprising the organelles responsible for motility in present day eukaryotic cells. The results will lead to a critical test of a major postulate of this important general hypothesis concerning the origin of cellular organelles.